AMP: ALL-Nations Alliance for American Indians

9353199 Young American Indians are the least represented of all minorities in Science, Engineering and Mathematics (SEM). The overall goal of this project is to develop a cohesive interactive American Indian Alliance and network to increase substantially the quality and quantity of American Indians receiving baccalaureate degrees and graduate degrees in SEM. The initial step in achieving this goal will be to sponsor a special conference to seek input from both the Indian community and the SEM community. A major goal of the conference will be to identify and select specific options to build a cohesive alliance. A key aspect will be the agreed upon selection of a lead institution or institutions to administratively manage the American Indian Alliance. In addition, conference attendees will provide valuable input regarding innovative programs to enhance matriculation of American Indian students at the following three critical transition points: (1) high school to college (tribal/community/four-year); (2) from two-year college (tribal/community) to four-year SEM degree-granting institutions; and (3) from four-year institutions to doctoral degree granting programs in SEM fields. Invitations to the conference will be sent to no less than 45 participating post-secondary institutions in 14 western states with significant American Indian population. Of the 45 post-secondary institutions, 23 are tribally controlled community colleges. A major goal of the alliance will be to empower the network of tribal colleges to establish a central office to administer SEM programs for Indian students. Examples of some of the project activities that will be considered to be implemented by participating institutions in the alliance are as follows: pre-college summer bridge programs; summer research enrichment experiences; faculty exchange programs between two-year (i.e., tribal/community) college and four-year SEM institutions; curriculum development; graduate school prepar ation; tribal college adopt-a-school programs; and telecommunications networking. Future activities of the American Indian AMP project will impact American Indians at the levels of pre-college, undergraduate, and graduate education. The American Indian Alliance is designed to capitalize on the strengths of existing Indian programs, SEM education and research programs, and NSF funded programs in the western states.